Electrons and Atoms: Contemporary Experiments for Advanced Undergraduates

Upper division laboratory experiments are developed for the areas of electron microscopy, laser Raman spectroscopy and superconductivity in which advanced undergraduates will use state-of-the art laboratory equipment. In addition to the novel experience for the undergraduate participants, these experiments will promote undergraduate physics at ASU, and stimulate interest in physics among the high school community.